Computing and Information Science Scholarship Program for Supporting Academic Success and Technology Workforce Preparedness

The four-year project provides scholarships to undergraduate students majoring in computing and information science. All scholarship recipients will complete requirements for the baccalaureate degree by the end of the spring semester 2006. The program prepares students for the high technology workforce through internship participation, involvement in undergraduate research, and substantive interaction with mentors from technology fields. Strategies for assessing student learning outcomes in the project include portfolios of students' academic work, internship evaluations, career placements, and alumni surveys.